Automated Analysis of Probabilistic Open Systems

0098037
Automated Analysis of Probabilistic Open Systems
S. Purushothaman Iyer
W. Rance Cleaveland (Co-PI)

Concurrent systems such as network protocols and net-centric programs
are difficult to build and debug because of the potential they exhibit
for unintended process interactions. The development of net-based
applications which have to contend with probabilistic guarantees from
lower-levels is even more difficult as they need to be functionally
correct and also satisfy reliability/performance constraints. This
project will investigate how formal methods can be extended to address
both logical correctness and reliability/performance constraints.

The current project will explore semantic theories of systems that
have both non-determinism and probabilistic choice. In particular,
notions of equality and approximate equality of system behaviors will
be investigated. Furthermore, the effect of these notions on
compositional reasoning will also be studied.

The second topic of the proposed work will be a thorough comparison of
the semantic theories developed in this project against traditional
approaches to dealing with non-determinism and probabilistic choice.

Finally, practical algorithms for process minimization and for
checking equality (and approximate equality) of processes will be
designed and implemented in the Concurrency Workbench of New Century.
Case studies, to evaluate the proposed theories, will also be
constructed and studied.